Species Segregation Effects and Sonoluminescence

Segregation of gas species in single bubble sonoluminescence is studied using the techniques of hydrodynamics. Extreme temperature and pressure gradients, which produce highly non-linear gas dynamic behavior, will be simulated using new and more flexible numerical techniques.